Research Initiation Award: Adaptive Quantification of Model Uncertainties

A key element needed in robust control and adaptive control is a reasonable uncertainty bound. An inadequate uncertainty bound description will cause analysis to be either overly conservative or dangerously optimistic. Despite this widely appreciated fact, the problem of the quantification of uncertainty has received scant attention. The research intends to develop a new methodology for obtaining an estimate of the true plant as well as a frequency upper bound on the uncertainty. A starting point is the adaptive quantification of uncertainties by rational approximation which combines identification, interpolation and approximation nicely. Preliminary results show that the methods proposed provide realistic bounds for the uncertainty. This encourages us to believe that there is considerable potential for further exploration. The expected strategies for conducting this research are outlined. The potential benefits and the implications of the expected results are believed to be wide-ranging and include new insights into the understanding and treatment of the effects of the uncertainty, integration of robust control and adaptive control, new method for fault detection and so on.